GK-12 Fellows: Virginia Consortium Interdisciplinary Program

A total of 24 outstanding middle school teachers will be recruited to be students in an Interdisciplinary Science program of Virginia Commonwealth University and the University of Virginia and to serve as Graduate Teaching Fellows. Each Graduate Fellow will:

Complete an M.S. in Interdisciplinary Studies of an M.S. program in physics, mathematical sciences or chemistry. The Interdisciplinary Science program included graduate course work in at least two disciplines, two interdisciplinary science courses and a final thesis.

Receive training for in-school activities through the mathematics and Science Center of the Richmond area schools

Provide enriched science and mathematics disciplinary content for current middle-school teachers working with them in a training institute and offering in their classrooms model lessons for students.

After serving as Fellows, they may become members of the Clinical Faculty at Virginia Commonwealth University or the University of Virginia, continuing to link the schools and the college teacher preparation programs.

This award is co-supported by the Office of Multidisciplinary Activities in the Directorate for Mathematical and Physical Sciences.